Stochastic Variational Problems: Equilibrium & Modeling Uncertainty

Wets
0705470

The investigator studies two classes of issues related to
stochastic optimization problems -- decision-making under
uncertainty. Both come with nontrivial modeling, theoretical,
and computational challenges. The first part of the project
deals with an extension of the stochastic programming and
variational analysis methodology to deal with a large class of
variational problems in a stochastic environment, which could be
called stochastic equilibrium problems. They include variational
inequalities, cooperative and noncooperative games, Walras-type
equilibria, solving inclusions, and fixed point problems, when
some of the components of the problem are stochastic. The goal
here is to develop a theory that leads to implementable numerical
procedures. The second part of the project deals with making the
methodology of stochastic programming more accessible to a wider
range of users, namely with the design of procedures that allow
the user to describe the uncertainty when only (very) limited
data are available about the random parameters. This is
particularly critical when the uncertainty is to be revealed over
time (or space) and the decision maker can use this information
to select recourse (adjusting) decisions.

Almost all important decision-making problems, except
possibly a few that are purely technical in nature, involve some
level of uncertainty about some of the parameters or components
of the problem. For example,
(a) setting monetary or economic policy requires taking into
account uncertainty in the economic and financial markets,
(b) selecting a master scheduling plan in manufacturing requires
taking into account uncertainty in the market's response,
(c) the choice of an environmental protection plan needs to
balance changing atmospheric conditions with sociological and
economic impacts, all involving various uncertainties,
(d) policies issues related to energy supply require taking
into account world market price vagaries as well as potential
technological innovations,
and so on. Deterministic models for such problems, even when
including scenario "analysis," lead to so-called optimal
decisions that almost never are robust, sometimes are even
seriously misleading. So it is crucial to take uncertainty into
account when setting up either optimization or equilibrium
models. Using tools of variational analysis, algorithmic
procedures developed for solving (nonconvex, finite-dimensional)
variational inequalities, and approximation schemes for
stochastic optimization problems, the investigator develops
theoretical results and computational tools to solve such
fundamental problems and to improve the modeling of the
uncertainty components. An important issue, both for stochastic
optimization and for equilibrium problems in a stochastic
environment, is the modeling of the uncertainty. In practical
situations, sufficient data are not always available to justify
the use of classical statistical methods. The investigator
studies "lack of data" issues, examining techniques that allow
the user to incorporate other information in the estimation of
the distribution of the unknown parameters.